SBIR/STTR Phase II: Integration of Electromagnetic Actuation Using VOST Design

This Small Business Technology Transfer (STTR) Phase II project will produce an emission-free control valve to address an industry need for environmentally safe valves. The axially rotated Venturi Off-Set Technology valve will be equipped with a conical seat for internal sealing and a magnetic coupling for leak-proof actuation.
The commercial potential of this project will provide the Petroleum industry with valves that are emission-free which will result in a cleaner environment.